Workshop on Women, Engineering and Higher Education

This proposal aims to bring together leading women in engineering professionals, who are highly placed in education administrative positions. The purpose is to address the continuing difficulty of recruiting women into undergraduate and graduate engineering education programs.